Novel Degradable Polymers for Cellular Adhesion

The goal of this research is to identify and synthesize a polymer system to serve as a scaffold for functioning mammalian cells. The optimal polymer system would maximize cellular function in vivo. The basic requirements for the scaffold include biodegradability, biocompatibility, suitable mechanical properties, and an adhesive moiety to facilitate cell attachment. In order to reach this goal, several steps need to be completed. The exact ordering of the polymer processing and adhesion moiety attachment steps will be determined during the project. Cell culture studies will be conducted on these polymers in vitro, and surgical implantation of these systems with an assessment of structure and function in vivo will be attempted.